Development of the Aspect Graph Representation for Use in Robot Vision

This project will develop perspective-based aspect graphs for visual recognition of 3-D objects. Algorithms will be developed to create aspect graphs for planar-faced objects and for curved-surface objects used in CSG solid modeling. Techniques for reducing the complexity of these aspect graphs will also be studied, possibly leading to reduced storage or faster object recognition.